Computational Methods in the Undergraduate Physics Curriculum: An Integrated Approach

Henderson State University will purchase four microcomputer-based color graphics workstations, a laser printer, and associated software. This equipment will be used to improve instruction by integrating computational methods and computer graphics into the undergraduate curriculum in physics. These techniques and capabilities then will be applied to problems in classical mechanics, modern physics, and quantum mechanics. Henderson State University will match the NSF grant with an equal amount of funds.